Mathematical Sciences: Time-Discretization Schemes for Incompressible Navier-Stokes Equations and Burgers' Equation

This research program is concerned with the stability, accuracy and effectiveness of fully discrete schemes which result from the application of certain time-differencing schemes to semidiscrete versions of the Navier-Stokes equations describing incompressible flow and Burgers' equation. The emphasis is on semidiscrete approximations which are derived via the Galerkin method. The analysis part of the research will clarify the essential features that admissible numerical solution schemes should possess. The algorithms developed will enable scientists and engineers to solve many technical problems in incompressible fluid flow which cannot be solved by current techniques.